US-Bhutan Planning Visit: Seismotectonics and Structure of the Bhutanese Himalaya

0118594
Miller

This award supports a planning visit for PIs Kate Miller, University of Texas at El Paso
and Lincoln Hollister, Princeton University to travel to the Kingdom of Bhutan. Their research goals require that they first visit the country where they will work with Bhutanese geoscientists to deploy a seismic network in Bhutan. They will also train scientists at the Bhutanese Geological Survey (BGS) in modern seismic monitoring techniques. Once they have finalized this work, they will prepare a full proposal for submission to the Geosciences research directorate.

This activity will initiate seismic studies in a unique and previously inaccessible region of the Himalayas and will enhance current seismic research on the Himalayan region. Collaboration and training of Bhutanese scientists in seismic hazard assessment will constitute the first steps toward establishing a national seismic monitoring network in a region with significant seismic hazard.